BCCC Physics/Physical Science Instrumentation

The Physics/Physical Science Instrumentation project has four major objectives: 1) to acquire important equipment for the project, 2) to integrate computer data gathering and analysis experiences into the physics/physical science curriculum, 3) to develop and implement a laboratory incorporating newly acquired equipment, and 4) to present a project review at the area AAPT meeting (all materials and experiments relative to the project are being disseminated to other physics/physical science instructors.)By meeting the objectives of the project, the physics/physical science department is strengthening its offerings to students and preparing students for more of the requirements necessary to enter physics, physical science, engineering, medicine, or other science related classes in the four-year institutions.NSF grant funds are being matched with funds from non-federal sources.